Workshop: Galerkin Models for the Dynamics and Control of Complex Flows

ABSTRACT Proposal Number: CTS-9714603 Principal Investigator: Rempfer This is a proposal to hold a workshop on POD-Galerkin models for the description of the dynamics of complex flows. The Workshop will be held at October 13 and 14, 1997 at Cornell University. About two dozen of the leading scientists doing research in this area will participate. The objective is to determine the state-of-the-art in this field. Topics will include the issues involved in construction of POD models, the accuracy of low dimensional models and their possible application such as control of turbulent flows.